Distribution of Reactive Chemical Species in Ice and Snow

This award is for support of a two year program to study the air- snow exchange processes controlling the uptake, release, and incorporation of reactive gases into polar firn. The concentrations of two reactive species, hydrogen peroxide and formaldehyde, in air above and below the snow surface, will be measured and the equilibria and kinetics of the absorption, and release of these gases at the ice-air interface will be studied. A mathematical model to describe gas-snow interactions will be developed, calibrated and validated using field data obtained at Summit, Greenland.